An Inquiry-Discovery of Elementary Mathematics/Science Courses with a Teacher Training Component

Lehman College plans to address the problem of poor student preparation and the alienation of incoming students from mathematics and science by converting, as a model, one section of 45 to 50 students in the present core sequence required of incoming students (quantitative reasoning and natural sciences) to a two-semester combined mathematics-science course based on the inquiry-discovery method. A series of laboratory experiences will be developed in which the students are given tasks requiring higher-level thinking, but are not given explicit directions as to how to do them. The method requires the students to work in small groups with a tutor. The tutors will be science education students taking a specially-designed advanced education course in which they will learn the scientific concepts and develop experience with the inquiry/discovery method of learning.